FRG: Collaborative Research: Arithmetic and Equidistribution on Homogeneous Spaces

In recent years, it has become clear that many interesting problems,
in particular problems in arithmetic, quantum chaos and the theory of
L-functions, may be profitably reduced to questions concerning
equidistribution of points or measures on homogeneous spaces. These
questions regarding equidistribution can be approached from many
angles. Two theories which have proved to be particularly well-suited
to study such questions are the spectral theory of automorphic forms,
which is closely related to the theory of L-functions, and the theory
of dynamical systems, particularly the study of unipotent and more
general flows on these homogeneous spaces. Recently there has been
considerable progress involving tools such as special value formulae
for L-functions, and (partial) classification results for measures
invariant under higher rank torus actions. Particularly exciting is
the possibility, already realized in some instances, of combining
these techniques. The purpose of the proposed FRG is to investigate
further this circle of ideas, which we believe has the potential to
impact many other problems related to the above. The result of these
investigations will be a deeper understanding of the dynamics of group
actions on homogeneous spaces, of the analytic theory of automorphic
forms, and the (sometimes unexpected) applications to problems of
arithmetic nature.

The present project is concerned with a surprising link between two
classical fields of mathematics of quite disparate origin: number
theory and dynamics. The study of number theory began thousands of
years ago, motivated, in significant part, by questions about prime
numbers. On the other hand, ergodic theory and dynamics are
mathematical fields of more recent provenance, which arose from
studying the long-term evolution of complicated deterministic
processes -- such as planetary motion. It is a striking fact (which
has only recently begun to be heavily exploited) that, in certain
contexts, ideas from ergodic theory interact very deeply with classical
problems in number theory. This project will enhance our
understanding of this inter-relation and how we can combine knowledge
from both of these fruitful disciplines effectively.